Computational Methods in Modular Representation Theory

Lux
The investigator studies computational representations of a
finite group over finite fields. Groups can be thought of as the
mathematical abstraction of the common notion of symmetries. As
such they arise in mathematics and natural sciences such as for
example physics, chemistry, and biology. The symmetry group of an
object usually also acts on function spaces that are related to
the given object. This is a so-called linear action and in the
case where the function space is finite dimensional the group
acts as invertible matrices on the space. Such a realization is
called a (matrix-) representation of the group. In this context
one distinguishes two cases, the one where the matrices are
written over a field of characteristic 0 such as the complex
numbers, or the case where the entries are in a finite field.
This case is particularly interesting since here the
representation theory is tightly connected to the structure of
the group. The investigator develops a share package of programs
in the computer algebra system GAP. This system is free of
charge, well documented, and widely used. The theory of
representations in the finite characteristic case is far from
being fully understood. For example, up to now not even all the
irreducible representations for all finite simple groups are
known. The share package implements algorithms to help solve
several questions concerning the representations of a finite
group. First of all it enables the user to compute the projective
indecomposable representations of a given group or alternatively
access them via a data base that is provided by the package.
These representations are of fundamental importance when one is
interested in getting an overview of all representations of the
group. From the projective indecomposable representations one can
derive an algebra called the basic algebra that has the same
representation theory as the group. This algebra is much smaller
than the group algebra itself and hence also has important
applications in computing with representations. The share package
therefore also contains functions to compute the basic algebra.
Even though the basic algebra is a very important invariant,
barely anything is known about it even for specific groups. The
share package increases the knowledge about specific groups
tremendously. Moreover, there is an explicit algorithmic
connection between representations of a group and that of its
basic algebra. The share package incorporates functions that
allow the user to analyze and construct representations using
this connection. This is of particular importance in computations
of the cohomology ring or the Ext-algebra of a group.
A group is a mathematical object that captures notions of
arrangement and symmetry -- for example, the different
orientations of a square when turned ninety degrees at a time
comprise a group. Groups arise in mathematics and natural
sciences such as physics, chemistry, and biology. Exploiting the
group structure often leads to deep insights into problems in
these areas. The investigator develops ways to represent and
computationally study finite groups. He implements these methods
in computer software, building on the freely available software
system GAP. The package he develops contains data bases of
computed results. These are accessible to the public via the GAP
system and alternatively on the world wide web. GAP itself is
used in the educational environment and as part of GAP one
possible application of the software package is in the class
room. It gives students hands-on experience with representation
theory free of charge.